The 36th Conference on Stochastic Processes and their Applications

This project provides participant support for the 36th Conference on
Stochastic Processes and their Applications (SPA) to be held July 29-
August 2, 2013 at the University Colorado Boulder. Organized under the
auspices of the Bernoulli Society and the Institute of Mathematical
Statistics, SPA has emerged as the premier international forum for the
dissemination of new results in probability and random processes.

As with past SPAs, the Boulder meeting will feature a wide range of
topics, bringing together both theoretical and applied researchers.
In addition to plenary talks which include the most prestigious named
lectures of the probability calendar, the Boulder meeting will be
organized around a large number of shorter contributed talks. This
provides a platform for young probabilists and affiliated researchers
to present their work alongside the key figures of the field. To
facilitate these important exchanges, travel support for Ph.D.
students, postdocs, and new faculty, particularly for women and
underrepresented minorities, represents a large portion of the project.

In addition to the scientific program the Boulder meeting will feature
a series of round table discussions aimed at supporting new
researchers to the field. Full program details are available at the
conference website: math.colorado.edu/spa2013/.